MRI/RUI: Instrumentation for Sequencing and Genomic Analysis

Project Summary

A grant has been awarded to Western Washington University under the supervision of Drs. Peterson, Moyer and Young of the Biology Department to support the acquisition of
core instrumentation and software required for DNA sequencing, genotyping,
and analysis. The ease with which DNA can now be sequenced, coupled with
advances in molecular biology and computer science has revolutionized the
biological sciences. This technology is now central to basic research in
many disciplines, as well as integral to the training of future researchers
and science educators.

Funding from this proposal will facilitate primary research in eleven
different labs with current and pending funding. A broad array of fields
will be supported by this instrumentation, including Conservation Biology,
Microbial Diversity, Evolutionary Biology, Plant Functional Genomics,
Developmental Genetics, and Protein Biochemistry. State of the art
instrumentation will further enable grant procurement and renewal by
allowing us to perform rigorous research using modern techniques. This core
instrumentation will also enhance our ability to attract and retain capable
professors/researchers.

In addition to establishing and maintaining externally-funded research
programs, we are dedicated to the integration of research and training
through the mentoring of undergraduates in faculty research labs. This
training will allow our students to continue to be recognized regionally
and nationally with jobs in the biotechnology industry, admission to
graduate and professional schools, and pre-doctoral awards. Furthermore,
we are revising our core biology curriculum with a primary focus on the
integration of molecular biology approaches at all class levels. In all,
over 500 undergraduate students per year will directly benefit from this
instrumentation through instruction in the Biology Department. Through
WWU's Integrated Laboratory Network the equipment supported by this grant
will be accessible to affiliated programs in the College of Arts and
Sciences and the Huxley College of Environmental Studies, as well as to
future K-12 science educators enrolled in the Woodring College of
Education. In all, a broad spectrum of people, ranging from faculty and
undergraduates to K-12 science students will benefit. Access to automated
DNA sequencing and genotyping technologies will enhance student education
and professional opportunities while furthering fundamental science
research.